"An Undergraduate Applied Digital Signal Processing Laboratory"

This project restructures three courses in the electrical engineering curriculum to give an orderly progression through digital signal processing (DSP) into digital image processing (DIP) while adequately covering the usual material found in these courses. Electric Circuits II now provides sufficient background for students to design and implement real-time digital filters on a DSP chip. Mathematics for Engineers contains enough discrete transform theory for students to utilize computational DSP software effectively while the course in Communication Systems develops DIP through digital image display and information extraction. The curriculum developments have been made possible through the establishment of an applied DSP laboratory that has been created with personal computers. These together with DSP microprocessors, headphones, microphones and cameras for sound and image inputs and outputs permit DSP/DIP experiences as an integral part of the courses. The award is being matched by an equal amount from the principal investigator's institution.